Theoretical Nuclear Physics and Theoretical Physics

This work will continue research on the role of vortex spin in collective motion, in particular the extension to half- integer vortex spin. In addition, work will be done on implementing the general tensor operator calculus using an extension of the vector-coherent-states technique.